Stochastic Models for the Design and Management of Customer Contact Centers

A contact center is a collection of resources providing an interface
between a service provider and its customers. The classical contact center
is a call center, containing a collection of service representatives (reps)
who talk to customers over the telephone. In a call center, the service reps
are supported by quite elaborate information-and-communication-
technology (ICT) equipment, such as a private branch exchange (PBX), an
interactive voice response (IVR) unit, an automatic call distributor (ACD),
a personal computer (PC) and assorted databases. With the rapid growth of
e-commerce, contact between the service provider and its customers is
often made via e-mail or the Internet instead of by telephone.

The design and management of contact centers is important, and worthy of
research, because contact centers comprise a large, growing part of the
economy and because they are quite complicated. Classic call centers are
complicated because there are often many types of calls, requiring
different service skills, such as knowledge of different languages and
knowledge of different special promotions. The ACD is able to respond
through skill-based routing, but there remains an opportunity to determine
better routing algorithms and more effective methods for staffing. The
difficulties are largely due to uncertainty about future arrivals of service
requests of various kinds and the time and resources that will be required
to respond to those requests.

Given that contact with customers no longer need be by telephone, it is
necessary to consider the other media. When service reps perform several
different kinds of work, there is a need to allocate effort to the different
tasks, which presents opportunities for improved efficiency if some of the
work can be postponed. Multimedia also lead to more complicated contact
experiences. For example, customers might alternate between periods of
interaction with service reps and periods of browsing on the Internet.

This project aims to respond to these challenges by conducting exploratory
research on stochastic (probability) models of contact centers, aiming to
uncover fundamental principles and develop performance-analysis tools
that will make it possible to improve the design and management of
contact centers. Effort will be made to find conditions for resource pooling
in contact centers, where the efficiency of a large single-skill center is
achieved in a multi-skilled center with minimal flexibility. Staffing will be
studied in each of three important time scales: real-time, short-term and
long-term. Effort will be made to understand the contribution of different
sources of uncertainty: model uncertainty, parameter uncertainty and
process uncertainty.